Improvements of the High Voltage Transmission Electron Microscope for Imaging of Frozen Cells and Complex Macromolecular Bio-Assemblies

In transmission electron microscopy of biological structures, there are two phenomena that often prevent imaging at the molecular level: radiation damage and contamination. These problems can be reduced by two approaches: protecting the specimen and/or improving the microscope. In the first approach, significant progress has been achieved. Firstly, a special apparatus has been developed for rapid cryoimmobilization of a living cell during light microscopic observation for further imaging as this cell's cryo-whole-mount. Cellular architecture is retained at the molecular level and therefore can be referred directly to the behavior of the living cell (Malecki 1992, Proc. EMSA 50: 566-567. Secondly, the deep negative staining/ embedding procedure has been developed. A thick and uniform layer of embedment supports and protects the three-dimensional structure within the whole-mount. This electron-dense preparation is only transparent for electrons with high energies attainable at high accelerating voltages (Ris&Malecki 1993, J. Struct. Biol. 111:148-157). In this project, as the second approach, the aim is to improve the microscope for work with beam-sensitive specimens maintained at low temperatures. The high voltage transmission electron microscope operating at the accelerating voltage lMeV is used. It is already known that high accelerating voltage is a major factor in reducing beam damage. Therefore, benefiting from this unique high accelerating voltage feature and on the basis of preliminary results, four modifications are proposed: (1) addition of an improved cryo-stage to reduce thermal drift and to damp mechanical vibrations; (2) development of new double-blade and cylindrical cold traps to shield the specimen; (3) replacement of diffusion pumps for the specimen chamber and the film camera with turbomolecular pumps to obtain a cleaner vacuum, and (4) addition of a computer and an intensified charge-coupled device camera to pursue real-time image pro cessing at low doses, including real-time three-dimensional imaging via the HEVEM. These new capabilities of the high voltage transmission electron microscope will be essential to pursue three leading projects: (a) study of the functional ultrastructure of the nucleopore complex in nucleus/cytoplasm transport, (b) study of the role played by titin gene expression in myofibril assembly and myoblast maturation, and (c) study of the effects of the forced expression of myoD, myogenin, and titin genes on induced differentiation, thus reduction of malignancy in rhabdomyosarcomas.